A New Laser Crystal for Holographic Interferometry

9362063 Nicholson A new laser crystal, praeseodymium yttrium lithium fluoride, is being proposed for development for applications in holographic interferometry. Most pulsed laser holographic interferometry is presently performed with either frequency doubled neodymium yag or with ruby lasers. There are a number of limitations imposed by either of these tow crystals, some of which will be overcome by the new proposed crystal. Holographic also anticipates the crystal will have significant applications in medicine and elsewhere. Holographics proposes to prove certain aspects of the praseodymium crystal in Phase I, such as making a seed laser and gaining single longitudinal mode in an injection seeded gaussian mirrored oscillator. Improvements in pumping efficiency will be attempted by using fluorescent converter and doped glass converters. ***